Construction of Low-Complexity, Capacity-Achieving Code Families from Expander Graphs

The purpose of the project is to explore one of the new
directions in coding theory: code families constructed from bipartite
graphs which afford iterative decoding of complexity proportional to
(the first degree of) the number of transmitted bits. Potential
applications of expander codes include forward error correction in
high-speed optical lines, wireless lines, and deep-space applications.
It is known that there exist easily constructible code families that
reach capacity of the channel under iterative decoding and ensure
exponential decline of the error probability of decoding. A
distinctive feature of these code families is that convergence of
decoding to the correct decision is established relying on expanding
properties of the underlying graph.

This project concentrates on constructing families of expander codes
(parallel concatenations) that match or surpass the error performance
of serially concatenated codes in the sense of G. D. Forney, while
bringing the decoding complexity down from quadratic to linear-time,
and studying the error probability of codes of moderate length (up to
10,000) constructed from bipartite graphs. The specific problems
being addressed are: (a) to establish improved estimates of the error
probability and of the number of errors correctable under various
versions of the basic iterative decoding procedure; (b) to study the
error probability of expander codes for code rates in the neighborhood
of the channel capacity; (c) to construct practical codes of moderate
length based on bipartite graphs and specific short binary codes and
to perform computer simulations of their error probability; (d) to
generalize the expander code construction from two levels to a
multilevel version; to study the error performance of the multilevel
construction.